Memory: A Traveling Exhibition

9980498
PEARCE

The Exploratorium will design, build and travel an exhibition on human memory called "Memory: A Traveling Exhibition." This 3,000-square-foot exhibition will approach human memory from biological, cognitive, personal and cultural perspectives. "Memory: A Traveling Exhibition" will be a smaller, moveable version of a successful exhibition at the Exploratorium in 1998. A recent boom in scientific research dealing with memory has generated a corresponding need for science centers to inform the public about the nature and significance of findings. This exhibition will be designed to increase the public's awareness of the extent, importance and nature of their memories, as well as their understanding of how cognitive scientists study the mind. The exhibition will travel to science centers across the nation.